Undergraduate Research Involvement in Linguistics

ABSTRACT This grant will provide opportunities for five undergraduate students per year for two years to participate in meaningful ways in six different research projects being undertaken by faculty members of the University of Texas at El Paso. The projects are ones which have been selected to be particularly suitable for students of Hispanic descent. Minority students, including Hispanics, are severely underrepresented in the scientific community in the U.S., and in the graduate education in science which is the preparatory source of that community. The premise underlying this effort is that significant participation in scientific research at the undergraduate level will lead larger numbers of such students to consider research careers as potential options for them.